Collaborative Research: RAPID: Behavioral Epidemic Modeling For COVID-19 Containment

People tend to change and adapt their behavior during epidemics. Historically, behavioral adaptation has played a central role in the progression of epidemics. In some cases, a change in behavior may suppress an epidemic (e.g., through fear-driven flight or self-isolation) while in other cases, a change may intensify the spread of a disease (e.g., through vaccine refusal or premature cessation of distancing). People’s future behavior during the current COVID-19 epidemic will determine how well we cope with two central threats. First is the immediate threat of successive epidemic waves due to the premature lifting of social distancing guidelines, and the abandonment of social distancing by a large percentage of the population. The second threat is that the disease will rebound even after a vaccine is available. This has occurred before (e.g., measles) and could occur with COVID-19 if a sufficient fraction of the population refuses vaccine out of fear. This research will develop a new model to predict human behavior using publicly available social media data to address a known weakness in most current models. The new model, source code, data, parameters, assumptions, and methods will all be completely open and publicly available, ensuring the replicability of all results. This project will also deliver an interactive version of the model for use by policymakers, government agencies, and educators. Other broader impacts are training opportunities for a graduate student.

Most current models that are used to forecast the course of epidemics may provide incomplete results because they do not take into account changes in peoples’ behavior (human behavioral adaptation). In the proposed research, human behavior will be included within a new model using data taken from social media platforms such as Twitter and Facebook. The data will allow calibration of the model and replicate the entire New York State epidemic to date. Machine Learning approaches will be applied to determine optimal messages and interventions over a wide range of scenarios and control strategies. This development requires a unique interdisciplinary team spanning social science, infectious disease modeling, biostatistics, social media data mining, and Machine Learning.

This RAPID award is made by the Ecology and Evolution of Infectious Diseases Program in the Division of Environmental Biology, using funds from the Coronavirus Aid, Relief, and Economic Security (CARES) Act.